U.S. - Switzerland Forum in NanoBioSciences

0107830
Aksay

This award for travel support of U.S. participants in a U.S.-Switzerland Forum in NanoBioSciences, in Princeton, New Jersey, December 14-15, 2000, focuses on the role of nanoscience in biological sciences and materials. The workshop will address: (1) interdependence and synergism between scientific discovery and technology in nanoscale research in biological sciences and materials; (2) the path from fundamental discovery of new properties and phenomena to industrial applications; and (3) ways to facilitate and best utilize current and expected advances in nanobiosciences. The workshop is organized by Ilhan A. Aksay and John T. Groves of the Princeton Materials Institute, University of Princeton and Hans Leuenberger, University of Basel and Beat Butz of the Swiss National Science Foundation. The meeting will bring together leading U.S. and Swiss scientists, researchers in early stages of career development for the explicit purpose of identifying a research agenda and future collaborative activities.